Collaborative Research: Osmium Isotopes, PGE, and Trace Element Systematics in Kamchatka Sub-Arc Mantle: Implications for Slab-Mantle Interactions

9902956
Widom
Xenoliths from the Kamchatka sub-arc mantle exhibit diverse petrographic
characteristics that have been attributed to variable degrees of
metasomatism by slab fluids of diverse compositions, generated over a range
of P-T conditions. This study will involve geochemical analyses of 50-60
petrographically well-characterized xenoliths, representing along- and
across-arc variations in the metasomatized Kamchatka arc mantle wedge. Os
isotope and PGE abundance measurements will be combined with major element
and lithophile trace element analyses to characterize the fluids released
to the mantle wedge during slab subduction, and to document the processes
of fluid-mantle interaction. The combined use of highly incompatible
elements with highly compatible elements will provide a unique perspective
on these processes. In addition, the extent of PGE mobility and the types
of PGE fractionations that occur during slab-mantle interactions will have
important implications regarding the origin of variable siderophile element
abundance patterns in mantle from other tectonic settings.